Distributed Composition Services for Self-Organizing Sensor Network Applications

Development of self-organizing sensor network applications can be
simplified with distributed composition services that cooperate with
distributed adaptation and lookup services to enable sensor nodes
to be self-aware, self-configurable, and responsive to real-time
changes. This research focuses on developing novel concepts, architecture
and mechanisms for distributed composition services that support
continuous operation of self-organizing applications to meet on-demand
needs in spite of ad-hoc deployment, frequent node failures, dynamic
reconfiguration, and mobility. The utility of the self-organizing
services will be demonstrated in collaborative sensor fusion
applications for detecting, classifying and tracking moving objects
and distributed sensor-actuator control. The testbed is an ad-hoc
network of sensor nodes that are equipped with embedded processors,
RF communication, multi-mode sensors and actuators. Sensors nodes
are augmented as reconfigurable smart components with capabilities
for impromptu networking, self-assembly, dynamically adaptation to
device failure and degradation, node mobility, and changes in task
and network requirements. They use innovative techniques including:
(1) Services and mechanisms for self-organizing sensor applications,
(2) scalable hierarchical composition services, (3) lightweight
reconfigurable communication mechanisms, and (4) implementation of
distributed services over event-based data-centric networks. Broader
impacts of this research include the development of advanced and
introductory course curriculum and innovative sensor network testbeds
and laboratories for education and research training of graduate and
undergraduate students including minority students.